2003 Workshop on Robotics and Computer Vision: PI Meeting

Robotics and Computer Vision Program

Abstract

ID: 0334822
P I: Kakadiaris, Ioannis A. Organization: University of Houston
Title: 2003 Workshop on Robotics and Computer Vision: PI Meeting

This project is to support about 130 Robotics and Computer Vision PIs to participate in the PI Workshop to be held in Las Vegas, NV on Oct. 27 and 28, 2003. The primary objectives are to report and share the research progress; to explore collaboration; and to provide research directions in Robotics and Computer Vision areas.